Fatigue of Dispersion Strengthened Ni with Ion Beam ModifiedSurface Layers

This project deals with the study of surface damage accumulation during fatigue of oxide dispersion strengthened nickel which has been surface modified by ion beam mixing of aluminum. The work is intended to advance the understanding of the mechanisms by which novel surface modifications can influence cyclic deformation phenomena associated with fatigue crack initiation and thus prolong fatigue life. Results will be compared with those recently obtained in a study of pure nickel with similar surface modifications in which it was found that the behavior of the surface layer was controlled mainly by bulk plastic strain localization events. The research will focus on an alloy which is chemically similar to pure nickel (since the dispersoid phase is inert), but which will display different behavior with respect to slip band extrusion, cyclic hardening, and plastic strain localization behavior. Specimens will be prepared using an established technique of vacuum evaporation of multiple layers of Ni and Al followed by high energy inert ion irradiation, resulting in a supersaturated solid solution of Al in Ni in a surface layer about 100 nm thick. These will be subjected to plastic strain controlled fatigue while monitoring the accumulation of surface damage by scanning electron microscopy and optical interferometry. Slip homogeneity and the spatial distribution and the detailed local morphology of slip bands features will be analyzed and compared to the behavior of unmodified nickel in both the pure and dispersion strengthened forms.